ITR: Virtual Power for a Wireless Campus - A Vision of Ubiquitous Computing On Low-Cost Mobile Devices

While handheld, battery-powered devices such as personal digital
assistants (PDA's) and web-enabled mobile phones are emerging as new
access points to the world's digital infrastructure, their cost and
short battery life are factors that are holding back their enormous
potential. Worse yet, the cost of such devices might even widen the
"digital divide". This research addresses these cost and battery-life issues
simultaneously, thereby getting one step closer to a vision of ubiquitous
computing embracing all of society. The specific focus is the digital university
campus with wireless Internet coverage.

In this setting, the aim is to increase the utility and battery-life
and decrease the cost of handheld wireless computers by enabling the
use of relatively simple hardware for the mobile devices. This research aims
both at designing embedded hardware that better conserves resources, as well as
creating a software layer that masks the limited computational prowess
of a handheld device by seamlessly coupling it to a relatively high-powered
stationary computational infrastructure via an "always on" wireless connection.
By off-loading power-intensive operations to the stationary infrastructure,
the battery-powered mobile device is provided with "virtual power".

Adaptive just-in-time compiler technology will be developed for minimizing
power use on mobile devices running mobile
code, and adaptive scheduling methods using results from the
Computational Grid research community. Depending on the algorithm to
be run on the mobile device and its current distance from the nearest
base station, the computation to be performed is to be automatically
partitioned between a part to be executed in the stationary
infrastructure and another to be run on the mobile device.

At the hardware level, orchestrated resource-management strategies will be
developed to enable designers to correctly design and implement highly
resource-constrained embedded systems while helping them to meet system-level
constraints. This requires augmenting today's functional design flows with a
resource-centric view. Here, the goal is not to replace existing design methodologies
with yet another all-encompassing methodology, but rather making a cross-cutting
impact by demonstrating the applicability of results to several driving examples
at different levels of abstraction, including System-on-Chip (SoC) platforms,
memory architecture level, and operating system level.